Media Coverage of Quick Onset Natural Hazards

This study focuses upon an important source for the transmission of information on natural hazards to the public: the mass media. Critical events and the uses and gratification theories of mass communications will be used to determine what constitutes a memorable media message about natural hazards. A content analysis of one month of media reports surrounding a quick-onset natural hazard will be examined. The analysis will include print and broadcast coverage of the event on both the local and national level. Reports will be analyzed for amount and intensity of coverage, type of coverage and thematic content. The study will also involve a 400-person survey of residents of the area impacted by the disaster. The survey will include questions about the media coverage as well as questions that seek to determine the impact of personal experience with the event. A second survey will be carried out in a community which has not had recent experience with a quick-onset hazard.